A Proposal to Install a Wind Profiler Radar on the Peruvian Antarctic Base "Machu Picchu" on King George Island

This project is an effort to construct, install and operate a monostotic Very High Frequency (VHF) wind profiling radar at the Peruvian Antarctic Base on King George Island in the Antarctic Peninsula. Similar wind profilers have operated successfully in other remote areas in the western equatorial Pacific, and in equivalent polar latitudes in Alaska. The system will provide nearly continuous measurement of the total wind vector through the troposphere and lower stratosphere, and is capable of expansion to make observations of the horizontal wind in the region from 70 km to 100 km altitude. The project will be carried out cooperatively with the Peruvian Antarctic program.